NSF Student Travel Grant for 2020 Cyber-Physical Systems and Internet-of-Things Week (CPS-IoT Week)

This project will provide funding for students from U.S. institutions of higher learning to attend the 2020 Cyber-Physical Systems and Internet-of-Things Week (CPS-IoT Week 2020). CPS-IoT Week will be held in Sydney, Australia during April 21-24, 2020.